Superconducting RF Laser-Driven Electron Gun

This grant covers Accelerator Physics research and development by Professor Hand at Cornell University. He will study the laser-stimulated emission of electrons from the surface of a superconducting RF cavity. The technique has the potential for creating the most intense electron sources with the smallest phase space. Applications to electron linacs will be studied.